Universal BEATS: Universal BioMusic Education Achievement Tier in Science

The Music Research Institute at the University of North Carolina at Greensboro, North Carolina State University's Department of Mathematics, Science, and Technology Education, and NCSU's Kenan Institute for Engineering, Technology, and Science are collaborating to improve elementary education by developing instructional resources for 2nd-5th grade students that infuse cutting-edge content from the emerging field of biomusic into standards-based elementary science and music curricula. The approach uses the musical sounds of nature to help students learn concepts in biology, physical science, and anthropology.

The goals of the Universal BEATS project are to cultivate students' interest in interdisciplinary science and to increase and diversify the pool of students entering the STEM pipeline. To achieve these goals, this exploratory project is developing, piloting, and refining four web-based biomusic instructional modules and laying the groundwork, via evaluation studies and dissemination efforts, for a large-scale materials development project.